CAREER: Insertion-Based Natural Language Generation

Language models (LMs) have become the foundations of most natural language processing (NLP) applications nowadays. However, existing language models predominantly follow the auto-regressive paradigm, which trains models to predict the next word given the left-side context. Then, they generate sentences word-by-word, left-to-right. The simplicity of this paradigm is attractive but it has several limitations, including inefficiency in generation, lack of reliable control for human-machine collaboration, and more importantly, it significantly deviates from how humans interpret and compose sentences. The proposed research explores a fundamentally distinct paradigm of language modeling --- insertion-based models. Such models formulate the generation process as iteratively inserting words into an incomplete context, offering significantly more flexibility and controllability compared to the auto-regressive models. The insertion-based formulation better mimics human writing behaviors and thus provides a tool for computational linguistics and cognitive science to study the structure of languages. The controllability of the model will benefit communication researchers, content creators, and creative composers for applications such as creative content generation, tailored communication, and personalized user experiences. The research results will be integrated in teaching materials to disseminate generative artificial intelligence (AI) for K-12 and undergraduate.

This project aims to advance our understandings of the benefits and capability of insertion-based LMs. The proposed research will explore different generation orders supported by the flexibility of the insertion-based formulation, with the goal to discover optimal insertion orders guided by linguistic theories. Additionally, the project will introduce a novel model architecture for a variation of insertion-based LMs that incorporates deletion operations, enabling the models to rectify previous generation errors. This enhancement brings added flexibility and controllability to insertion-based LMs. Furthermore, an ambitious goal of this research is to investigate the scaling law and scale up the pretraining of insertion-based LMs. The success of these explorations has the potential to lead to a family of large language models that exhibit enhanced flexibility, controllability, and inference efficiency surpassing the auto-regressive LMs, resulting in benefits for a wide range of natural language generation and general NLP tasks.